GEM: Model of Electron and Ion Distriubitons in the Open Magnetosphere

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. The goal of this research is to develop a model of the electron and Ion distribution functions in regions of open magnetic field lines within the magnetophere. In essence, the model will provide a steady-state zeroth - order velocity space mapping of the magnetosphere subject to the constraints of conservation of magnetic moment, energy and phase-space density along a particle path combined with the time-of-flight (velocity filter) effect.